ROW: Effects of Endomycorrhizal Fungi, Herbivory, and Neighboring Plants on Growth, Reproduction, and Defense of Lotus corniculatus: A Pilot Study

This research will examine the transfer of effects between neighboring plants which may be inter-linked by mycorrhizal hyphae. Mycorrhizal associations are generally beneficial and have mostly examined the effects of the fungus association on the performance of individual plants. However, new evidence suggests that the effects may be transmitted to and from neighboring plants via a fungal connection. The principal plant to be studied is Lotus corniculatus but interspecific linkages will also be examined. How the mycorrhizal linkages may function and the plants response to grazing and various nutrient regimes will be examined using greenhouse and garden experiments.